Hyperacuity in the Auditory System

Reed
0109872
Certain cells in the mammalian auditory brainstem (three
neurons from the periphery) show exceptionally small standard
deviations in the microsecond range of the timing of the first
action potential response under repeated trials of the same
sound. Moreover, the latency and its standard deviation are
quite independent of frequency and decibel level over large
ranges. This behavior is exceptional since the inputs to these
cells come from octopus and other cells in the contralateral
cochlear nucleus, a nucleus which is ennervated by auditory nerve
fibers that have much larger standard deviations and high
dependence on frequency and decibel level. Thus, this system is
an example of how the brain can use relatively sloppy and
variable devices (neurons) to perform surprisingly accurate
calculations. Professor Michael Reed, with colleague physiologist
Joseph Blum, investigates this system with three research
projects: (i) They create and investigate by machine computation
a large scale mathematical model of the whole system using known
physiological properties of auditory nerve fibers and recently
discovered properties of octopus cells; (ii) They use
mathematical analysis investigate of the improvement of the
standard deviation of latency in converging networks where the
target cells require coincident inputs within time windows in
order to fire; (iii) They use partial differential equations to
understand the special properties of dendritic information
processing in octopus cells.
Using mathematics and machine computation, Professor Michael
Reed continues to study how groups of cells (neurons) in the
auditory brainstem perform calculations that individual cells can
not do by themselves. Neurons are inherently sloppy and variable
devices that perform differently even under (apparently) the same
conditions with the same inputs. Nevertheless, large groups of
these neurons are able to perform together, reliably, highly
accurate calculations. This project tries to understand this
apparent paradox. The project sheds light on how and why human
brains are organized the way they are and it suggests new
mechanisms for the development of man-made thinking devices.